Mathematical Sciences: Discrete Littlewood-Paley Theory

Three themes of classical harmonic analysis will be developed in this mathematical research project. The problems to be investigated center on discrete decomposition techniques under recent development. The first area will focus on Littlewood-Paley theory. A generalization of the fundamental ideas of Fourier series in which functions or distributions are represented as combinations of simple functions. The map from the source function to the corresponding sequence of coefficients is called the phi- transform, the Fourier transform being perhaps the best known example. One application of this study will be to develop criteria for an extension of the T(1) theorem of David and Journe which gives precise boundedness conditions for singular linear operators solely on the basis of their action on constant functions. Other work will develop the close connection between Littlewood-Paley theory and weighted norm inequalities, especially to factorization and extrapolation for classes of weights much larger than the traditional Ap weights. One of the motivations for such studies comes from efforts to find sharp conditions on weights for the Fourier transform to be bounded. To study such inequalities, one must localize on the frequency side and time side simultaneously. Littlewood-Paley theory and the phi-transform are designed to deal with such problems. Discrete Littlewood-Paley theory has proved to be very useful in seismic and acoustic analysis, psycho-physiology, computer vision and image processing as well as in quantum field theory. Much of the algorithm development for computational work in these areas requires sampling techniques. This work will seek to develop characterizations of efficient sampling processes associated with these algorithms.